Collaborative Research: CRCNS Research Proposal: Single-Neuron Computational Mechanisms of Visual Object Coding in the Human Brain

The ability to recognize and remember visual objects is central to everyday life, yet scientists still do not fully understand how the human brain transforms visual experiences into lasting memories. This project aims to test how individual brain cells in the human medial temporal lobe help mediate the transition between perception and memory for objects and scenes. By combining recordings from single neurons in neurosurgical patients with advanced artificial intelligence (AI) methods, the research seeks to uncover the neural mechanisms that link perception and memory. Understanding these mechanisms would itself constitute a major scientific advance, and could ultimately improve knowledge of memory disorders and conditions involving altered perception and cognition. The project also intends to expand opportunities for neuroscience education and training by supporting open data sharing, interdisciplinary collaboration, and training in cutting-edge brain research across multiple institutions, including in an EPSCoR state.

This project investigates neural coding mechanisms for visual object representation and memory in the human medial temporal lobe using intracranial single-neuron recordings, eye tracking, and computational modeling. Neurosurgical patients with epilepsy will perform visual working memory and recognition memory tasks involving multiple sets of object and natural scene images. The research will contrast a hypothesized novel region-based feature coding framework for visual object representation and compare it with alternative neural coding models using deep-learning-based analyses. Further, the project will quantify how visual feature encoding contributes to category selectivity and semantic representations, how these representations predict memory performance and image memorability, and how remembered context modulates visual object coding. By integrating high-resolution human neural recordings with computational neuroscience approaches, the project will provide and test a comprehensive framework for understanding how visual information is transformed into memory representations in the human brain.